The Development of Strategies for the Design and Preparation of New Molecular Materials

9307947 Lauher This award is made in the Advanced Materials and Processing Program in support of the collaborative research of Professors Lauher and Fowler at SUNY-Stonybrook. Support is provided by the Chemistry Division. The objective of the research is the development of general strategies for the synthesis of designed layered organic solid-state materials. The approach is based on the identification of two independent sets of functionalities that will independently lead to the self-assembly of molecules into a layered supramolecular network. Conceptually, the first functionality assembles the molecules into one-dimensional networks and the second unites the one-dimensional networks into two-dimensional layered solids. Representative functionality candidates are the dicarboxylic acids and N,N'-disubstituted ureas. New persistent hydrogen bonding motifs will be sought. The relationship between molecular symmetry and crystallographic symmetry and the use of chirality will be explored. %%% New materials with novel mechanical, electrical and optical properties will be required by developing science and technology. Using the tools of molecular functionality, symmetry and chirality for control of supramolecular structure, this research will provide critical information that will form the basis for the design and preparation of new materials. ***